Ohio State University Young Science Scholars

The Ohio State University will initiate a ten-week, commuter and residential, multidisciplinary, Young Scholars project for 20 students in grades 11-12. To achieve the goal of encouraging highly-talented high school juniors and seniors to choose careers in the sciences, Ohio State proposes: 1) to place annually 20 students from the Central Ohio area into summer research positions in laboratories primarily within the three Ohio State University Colleges of Biological Sciences, Mathematical and Physical Sciences, and Medicine; 2) to provide these students with information on science career options, requirements, and planning; 3) to introduce them to the dilemmas of scientific ethics; and 4) to provide a follow- up that includes two 'alumni' meetings in the first year, continued contact through a longitudinal evaluation effort, and supplementary career support through the start of their undergraduate careers. The impact of this program on student participants will also be assessed.